The National Center for Atmospheric Research (NCAR) Activities Supported by the Centers for Disease Control and Prevention (CDC)

This is the Basic Ordering Agreement (Task Order) supports the National Center for Atmospheric Research activities funded by the Center for Disease Control and Prevention.